NER: Room-Temperature Single-Electron Transistors With Metallic Colloidal Nanoparticles

This objective of this research is to develop a highly exploratory
non-lithographic approach to fabricate room-temperature single-electron
transistors based on chemically synthesized metallic nanoparticles of
controllable sizes and shapes. The approach is based on controlled
manipulation and assembly of colloidal nanoparticles assisted by a
nonuniform electric field. The proposed approach is unique in that the
nanoparticles are used to form not only the central conducting islands
which allow room-temperature operation, but also metallic interconnects to
connect the central islands to conventional structures without the need of
high-resolution lithography. The approach also allows for the fabrication
of suspended single-electron transistor structure, which may address the
problem of random background charges.

Broader Impacts: The proposed work could lead to true breakthroughs in the
fabrication technology of practical single-electron devices, which are
identified in the International Technology Roadmap for Semiconductors as
possible alternatives to metal-oxide-semiconductors field-effect
transistors, which will soon run into fundamental physical scaling limits,
for future memory and logic applications. The project will also provide the
students with excellent research and educational opportunities in
nanoscience and nanotechnology. The highly interdisciplinary nature of the
research will result in broad training of students. The research project is
well suited for undergraduate students at all levels to participate.
Particular effort will be made to involve minority students.